Neuroscience and Psychobiology Undergraduate Laboratory Equipment

Holy Cross has recently established a Psychobiology/ Neuroscience concentration. The goal of this program is to provide a structured approach towards studying brain (nervous system and behavior relationships). The current proposal asks for equipment to establish a Neuroscience Lab course that would focus on teaching neuroanatomy and cell physiology. In addition to the Neuroscience course, this equipment would be used by students in research projects and would integrate into a number of related courses and labs in both the Biology and Psychology Departments.